The Lagrangian Averaged Navier-Stokes Equations with Applications to Turbulence Modeling

0105004
Shkoller

This three year research effort is founded upon the author's recent
development of a novel Lagrangian averaging procedure for the Euler and
Navier-Stokes equations of fluid dynamics. The method is based on
expressing the exact Lagrangian fluid flow as a composition of a smooth
deterministic volume-preserving Lagrangian flow and a rough stochastic
flow consisting of volume-preserving near-identity transformations. This
decomposition is asymptotically expanded about the identity, substituted
into the variational principle, and then averaged. The resulting
deterministic system of equations is termed the Lagrangian averaged
Navier-Stokes (LANS) equations in the presence of viscosity, and the
Lagrangian averaged Euler (LAE) equations in the ideal case when
viscosity is absent. Both the LAE and LANS models are parameterized by
a small spatial scale alpha, and are derived in such a fashion as to
accurately reproduce the dynamics of the Euler and Navier-Stokes
equations at spatial scales larger than alpha, while averaging (or
homogenizing) the fluid motion at scales smaller than alpha. Unlike
current approaches such as Reynolds averaged Navier-Stokes (RANS) or
Large Eddie Simulation (LES) models which add artificial dissipation to
the system to remove subgrid scales, the LAE/LANS equations preserve
the underlying structure of the inviscid dynamics, namely, energy,
helicity, and circulation, by instead using a geometric, nonlinear dispersive
mechanism. As a result, our LANS model, unlike RANS or LES, does not
artificially suppress intermittency, a fundamental feature of fluid
turbulence. The resulting system is a set of dynamically coupled partial
differential equations for the mean velocity field and covariance tensor.
This system will be the backbone of a massive analytic and computational
assault on the modeling and understanding of fluid turbulence.

Although heavily studied by numerous researchers for over a century,
incompressible fluid turbulence elusively remains one of the last great
challenges of modern scientific exploration. Its understanding is of
paramount importance in a wide range of engineering and physical
applications, ranging from the design of airplanes and automobiles, to
daily weather forecasts and global climate prediction. Roughly speaking,
a flow becomes turbulent when all of the spatial scales in the fluid are
activated, or in other words, when the fluid is moving so chaotically, as to
create smaller and ever smaller vortices. In such a flow regime, the
trajectory of each fluid particle appears unpredictable, yet the challenge is
to derive a mathematical set of equations which can describe this
unpredictable motion. About 150 years ago, the Navier-Stokes equations
were introduced for this very purpose, and although it is now generally
accepted that these equations do indeed provide a remarkable physical
model of reality, it remains a mathematical mystery as to whether or not
unique solutions to these equations exist for all time. Moreover, even
numerical approximations of these equations on the world's fastest
supercomputers are incapable of modeling the small-scale structures and
patterns which are formed in a turbulent regime -- the computer simply
runs out of memory long before it can simulate the prohibitively small
vortical motion. The LANS model, described above, is intended to
alleviate these fundamental difficulties, and make the computational
simulation of turbulent flows feasible.